Structural and Functional Characteristics of Tubulin Isoforms

This project will be supported by a joint award from the Chemistry Office of Special Projects and the Cellular Biosciences Cell Biology Program. It is aimed at the development of structural information on tubulin and exploration of the relationship between tubulin function and structural features. Particular emphasis will be placed on the the role of tubulin isoforms in the mechanism of function and control. Monoclonal antibodies will be used to recognize specifc tubulins. Separation of electrophoretically distinct tubulins will be investigated using immuno-affinity chromatography, pH gradient chromatofocusing, and affinity chromatography. Photoaffinity and chemico-affinity studies will be directed at ligand binding site localization. Thermodynamic and kinetic features of ligand-binding sites will be probed with particular emphasis on ligand-induced conformational changes in tubulin and proteolytic fragments. Protein sequencing of purified isoforms, proteolytic fragments, and affinity-labeled fragments will be done by mass spectrometric methods. The information obtained from these studies will be used to develop a model of tubulin and the conformational effects induced by assembly and ligand binding.